Low Dimensional Magnetic and Electronic Systems

9312476 Fowler This research studies low-dimensional strongly interacting magnetic and electronic systems which are increasingly important in condensed matter physics for understanding high temperature superconductivity, mesoscopic systems and anisotropic materials. The approach uses exact solutions, usually solved by the Bethe Ansatz, of one-dimensional strongly interacting models which are physically plausible. However, the exact solutions for these so- called integrable systems are often difficult to interpret physically and apply to higher dimension systems. Systems which will be studied during the grant period include the XXZ spin chain, sine-Gordon thermodynamics, Calogero-type systems and the Toda lattice. %%% The theoretical research being done on this grant uses highly mathematical techniques to obtain exact solutions of model physical systems. In most cases, these exact solutions can only be obtained in dimensions lower than the three dimensions in which we live. Thus, the applicability of these solutions to the real world is not always clear. On the other hand, it is nearly impossible so far to obtain exact solutions of three-dimensional systems and many materials have characteristics of lower dimensional systems. Thus, judicious use of exact solutions in lower dimensions can help us understand properties of real physical systems. This is particularly the case with high temperature superconductors, certain mesoscopic electronic devices and anisotropic materials in general. ***